A Computer Laboratory Supportng Mathematica in a Revised Calculus Curriculum

Calculus students are enhancing their mathematics education through the use of a computer laboratory equipped with IBM PS/2 computers running Mathematica. This mathematical tool will be used throughout their college careers. The laboratory is used by the calculus students in guided laboratory sessions designed to reinforce and augment the topics being covered in lecture. The laboratory is available on a drop-in basis to any student who has completed the calculus sequence.